Scientific Computing Research Environments for the Mathematical Sciences (SCREMS)

High Performance Symbolic Computation

The Department of Mathematics at the North Carolina State University will purchase 4 units of SUN HPC 450 (each having 4 processors) which will be dedicated to the support of research in the mathematical sciences. The equipment will be used for several research projects, including in particular:

Helminck's project: Computer Algebra and Symmetric Varieties,
Hong's project : Solving Real Algebraic Constraints,
Kaltofen's project: Computing with Black Box Objects and
Singer's project : Symbolic Computation and
Differential and Difference Equations.